Japan (JSPS) Postdoctoral Program: Dynamics in Chaotic Neural Networks

This award will provide supplementary support to enable Dr. Elizabeth Klerman of the Harvard Medical School to conduct collaborative research for 12 months with Dr. K. Aihara of Tokyo Denki University, Japan. They will investigate the significance of chaos in neural information processing by analyzing the characteristics of artificial neural networks composed of neurons with chaotic dynamics. The nonlinear phenomena of deterministic chaos is now recognized as ubiquitous in fields such as feedback systems, optics, ecology and biological systems. This project will attempt to demonstrate the effects of chaotic fluctuations in applications of network and neurocomputing. For example, since chaotic neurons can produce macroscopic fluctuations spontaneously, they may provide a means of escaping from undesirable local minima in problems of optimiza- tion, learning and self organization. Dr. Aihara's background in mathematical modeling of chaotic neurons will complement Dr. Klerman's research experience in the area of circadian rhythms.